CSR-AES: Adaptive Optimization for Dynamically Discovered Hardware and Software Resources

This project pursues the vision of a community that shares resources in an open
manner. Similar to today's web publication and discovery of documents, computer
applications, machine cycles, and databases can be announced openly and used by
others worldwide.

A big issue in realizing this vision is to create facilities that help manage
the diversity of available resources and adapt them to the users' needs. Thus,
published software modules may be adapted to compose new application programs;
discovered programs may be tuned to the user's platform; distributed
applications may run at high performance, as they adapt to changing bandwidth
and latency characteristics of the target environment. This project develops
such facilities. Building on results of prior NSF support, an adaptive
engine will dynamically improve the performance of distributed computer
applications; it will adaptively compose software modules from components; and
it will support computer applications that roam across discovered machine
platforms. These components are being integrated in the iShare Internet sharing
system, which provides the environment for resource publication, discovery, and
remote use.

Components of this system are being created in related NSF projects, which synergistically complement the present project.

This work addresses a fundamental problem in computer system and software
design: optimal design decisions are often impossible because insufficient
information is available at design-time. The adaptive engine moves design
decisions to the time application software executes, when this information becomes
available.

The project is expected to yield significant performance improvements of the
involved compilers, composers, and application software, substantially facilitating the way the involved resources can be shared by the global community.